Mechanisms and Timing of the Exhumation of an Ultra-High Pressure Terrain, Dabie Shan, China

Diamond-bearing rocks of the Dabie Shan metamorphic province of South China are among the most unique rocks exposed on the surface of the earth and present a major challege to tectonicists in terms of explaining their origins. Mineralogy of these rocks indicate that they originated at the surface, were then subjected to enormous pressures by burial, and finally exhumed to the surface. Although much attention has been paid to the petrologic character of the affected rocks, little work has been concentrated on the structures that are ultimately responsible for their unique history. This project is geared to conducting such studies and will attempt to establishe the geometry and kinematics of the structures and will establish timing and cooling relations.